A Logical Study of Interactive Computational Problems Understood as Games

The goal of this research is to elaborate an elegant and comprehensive
specification language and semantics for interactive computational
problems and explore the corresponding logic, --- the set of valid
principles of interactive computability expressible in that language.
Such a logic provides us with a powerful tool for systematically
studying computational tasks and automatically generating solutions to
new problems from known solutions to old problems. Other applications
include the possibility to base on this logic knowledge- and resource-
oriented automatic reasoning systems.

The intuitive notion of interactive computational problem is formalized
as a game between two players: the machine and the environment (user).
Moves of the game represent actions/choices by these agents, and
positions represent states/situations that emerge in the course of
interaction. A game is considered winnable (and hence the corresponding
problem solvable), if there is a computer program that wins it against
any possible environment. The language of the logic of interactive
computational problems suggested by the investigator is a non-disjoint
union of the languages of classical, intuitionistic and linear logics,
with logical operators interpreted as certain, --- most basic and
natural, --- operations on games. Validity of a formula is understood
as winnability for every game/problem interpretation of its atoms. The
restriction of winnability to the classical fragment of the language
turns out to be equivalent to the classical concept of truth, which
makes classical logic a natural syntactic fragment of the logic of
interactive computational problems. The same is conjectured to be the
case for the intuitionistic logic and (a version of) linear logic. This
way, the logic of interactive computational problems can unify, within
the framework of one general semantics, the classical, intuitionistic
and linear logics, with their seemingly unrelated or even antagonistic
philosophies. Verifying this conjecture, along with finding an
axiomatization for the logic of interactive computational problems, is
among the main technical objectives of this research.